Technician Support: Electron Microprobe

This award provides partial support for a full-time research technician who will operate the electron microprobe system in the Center for Lithospheric Studies at the University of Texas in Dallas.The University is committed to providing the remaining funds required. The electron microprobe instrument provides quantitative chemical analysis of small inhomogeneous rock and mineral samples for the research and teaching programs of members of the Geosciences faculty at the Center for Lithospheric studies.